Optimal Pre-stressing the Surface of a Component by Superfinish Hard Turning for Maxium Fatigue Life

This research project is to study and optimize the fatigue life for surfaces machined by superfinish hard turning. This will be accomplished by: (1) modeling the relationship between machining conditions, tool wear, surface integrity, and fatigue life of the superfinish hard turned surface, and (2) developing a methodology enabling optimal pre-stressing, through the optimal residual stress distribution generated by the best cutting conditions for fatigue life. The research results could lead to the replacement of grinding and superfinishing by single-point machining, benefiting the manufacturing industries that make bearings, gears, cams, shafts, tools, dies, etc. The research is fundamental and could lead to a significant improvement in the fatigue life of superfinish hard turned surfaces. A major strength of the project is its strong industry participation and support.